Development of a Structural Behavior Undergraduate Laboratory

Equipment and experiments are provided for teaching the behavior of structures to undergraduate engineers. Instruction begins with simple linear elastic experiments, progressing through structures exhibiting geometrically non-linear behavior (e.g., beam-column) and post linear conditions involving inelastic material response (e.g., the ultimate load capacity of reinforced concrete beams). All experiments will be done using small-scale structures that can be easily prefabricated and built by students. The overall objectives of these experiments are: (i) to enable the student to gain a better understanding of structural behavior; (ii) to give them an additional experience in experimental work beyond that gained in the first materials behavior laboratory course; and (iii) to serve as a motivational force and as a general enrichment of their educational experience.